Teaching Programmable Instrumentation Control

This project exposes undergraduate students to advanced graphical instrumentation control techniques. The laboratory supporting this project includes Macintosh II computers, special hardware interfaces, Labview (TM) software and a collection of oscilloscopes, function generators, multimeters and other accessories. Using these configurations students carry on instrument control via a user-friendly graphical programming technique, transform data to their exact requirements, and tabularize and graph results in an integrated environment. This lab not only serves students in the existing computer engineering controls laboratory but also non-computer-majors from the College of Science and Engineering who need to be involved in computer controlled instrumentation and students who wish to carry on projects and independent study in a laboratory environment. This award is being matched by an equal sum from the grantee.